Choice of Contingency Arming Scheme Actions Using Analytical Approaches

9360318 Vaiman The Generalized Transient Energy Function Method for Power Systems can be used when network topology is changing. This Project is intended to develop methods for selection of optimal actions for Contingency Arming Schemes on an analytical basis instead of "cut and try" or sensitivity methods. We propose to develop theory, algorithms and programs for non linear models of Power Systems. These algorithms permit to choose actions for Contingency Arming Schemes using the Generalized Transient Energy Function Method. Utilities will benefit by: increase of power system reliability; decrease of electrical energy underproduction during fault and post fault regimes; selection of control actions depending on disturbance strength in order to guarantee the transient stability and the necessary transient performance ***